US-Turkey Workshop: Industrial & Environmental Applicationsof Direct and Large Eddy Simulation of Turbulent Flows Istanbul, Turkey, July 6-9, 1998

9724106 Biringen Description: This award is for support of participation of US scientists in a "US-Turkey Workshop on Industrial and Environmental Applications of Direct and Large Eddy Simulation ", to be held in Istanbul, Turkey, July 6-9, 1998, at Bogazici University. The US organizer is Dr. Sedat Biringen, Department of Aerospace Engineering Sciences at the University of Colorado at Boulder. The Turkish co- organizer is Dr. Haluk Ors, Department of Mechanical Engineering at Bogazici University, in Istanbul. The workshop is to consist of invited and contributed papers covering: mathematical modeling of turbulent flows; turbulent closures and modeling; solution algorithms; error analysis; high performance computing and parallel processing relevant to turbulence simulation; industrial applications; and environmental and geophysical applications. The workshop will also include discussions of areas where joint research projects can be initiated between US and Turkish scientists. Scope: This award allows six American scientists from highly regarded academic institutions (one is from the National Center for Atmospheric Research in Boulder) to travel to Istanbul, Turkey to meet with Turkish scientists, to discuss scientific and technical developments in this area of fundamental research which has many wide applications in industry and in the environment. They plan to focus attention on the scientific questions that can be dealt with through US-Turkish scientific cooperation. There is potential for considerable benefits from collaboration between the US and Turkey with its strong base of researchers and graduate students in the areas of applied mathematics and engineering. Areas of applications in the US are many. In Turkey there are several questions related to the environmental impact of the South Anatolia Irrigation Project (GAP) which includes building very large dams on two major rivers, with resulting changes in water flows. This is an area of importance to the Turks but also of scientific benefit to the US scientific community. The proposal meets INT criteria for supporting activities intended to enhance scientific collaboration between US and foreign scientists in areas of mutual interest, and by supporting two junior US scientist (including one woman) to gain international experience that could be helpful to their career. ***